Acoustical Rainfall Analysis

9503896 Nystuen This technology development project is to test and improve an acoustic inversion algorithm to measure rain from the ambient sound field within the ocean. The underwater sound field produced by rain upon the surface contains information about drop size distribution within the rain. Rainfall is an important mechanism for exchanging heat and certain chemicals such as carbon between the oceans and atmosphere, but measurements are sparse and difficult to make. The technique to be developed will allow estimation of rainfall over a broad area by using remote ocean drifters and buoys. Rainfall upon the ocean surface can be detected by underwater sensors and the type and relative intensity of rainfall may be determined by examining the acoustic characteristics. The acoustic technique to be validated will be able to differentiate between rain types (stratiform vs. convective) by drop-size analysis and provide a rapid temporal response for accurate estimates of rainfall over large spatial scales. This project involves the placement of acoustic receivers offshore from two locations where there is doppler weather radar coverage. Acoustic signals received and isolated from the ambient sound field in the ocean will be compared with radar images of overlying rainfall so that quantitative estimates of rain can be associated with specific acoustic signatures. If successful, acoustic sensors can then be placed in remote areas of the oceans to greatly expand available data on rainfall amounts that are important to studies of climate variability.